Characterization of the Growth, Structure, and Magnetic Ordering of Metal Oxide Thin-Films and Superlattices

The relationship between crystalline structure and magnetic ordering is being studied in single crystal metal oxide superlattices of Fe3O4 and NiO. Superlattices of these materials show strong lattice and chemical modulation coherence, sharp interfaces, an interfacial strain that couples strongly with other properties of the superlattices, magnetic ordering which is strongly layer thickness dependent, and, finally, a highly anisotropic electron conductivity. Extended study of these and similar layered magnetic structures should lead us to an understanding of the fundamental physical mechanisms that lead to magnetic ordering, as well as the interplay between electronic and structural ordering in magnetic materials.